Gordon Research Conference on Chemical Reactions at SurfacesVentura, CA, March 8-12, 1993

This award from the Analytical and Surface Chemistry Program, provides partial support for a new Gordon Research Conference entitled "Chemical Reactions at Surfaces". This conference brings together researchers from chemistry, physics, engineering, and materials science to discuss advances in the microscopic understanding of chemical reactions occurring on solid surfaces. The funding provided will be used to support the participation of ten advanced graduate students in this Gordon Research Conference. %%% This award will support the participation of ten advanced graduate students in a newly established Gordon Conference on the chemistry of reactions at solid surfaces. The first conference will be held in March 1993 in Ventura, California.